Space-Time Transmitter and Receiver Design with Delay Constraints

Abstract:

Communication with multiple antennas is a promising technology for
future high-rate wireless communication systems. It is often referred
to as space-time communication because the transmitted signal is
encoded both across the antennas (space) and time. Over the past ten
years, various space-time coding and decoding schemes have been
developed. They can be roughly divided into two categories:
short-frame code designs and long-frame code designs. Relatively less
attention has been given to the transceiver design issues in
space-time communications with medium-length frames, i.e., those
containing more than a few but less than, say, a thousand bits. We use
medium-length frames in practice for several reasons: i) The data may
be bursty and of medium-length, which is often the case in Internet
traffic; ii) There may be stringent delay constraints which forbid
long frame transmissions, such as in real-time computing and control
applications. Such medium-length transmissions are not in the
space-time block-code (or short-code) paradigm and yet not long enough
to allow powerful error-control codes such as turbo or low-density
parity-check codes to demonstrate their full ``power''.

This project investigates several key issues in medium-length
space-time communications. Firstly, it pursues the problem of
transmitter code design for delay-constrained space-time
communications. Secondly, it investigates the problem of high decoding
complexity in space-time systems with a large number of transmit
antennas and/or a large modulation constellation, and develops
low-complex detectors for such scenarios. Thirdly, it deals with the
problem of space-time channel estimation at the receiver with or
without training symbols. The research in these topics will also
benefit long-frame space-time communication systems, as well as
important applications in multi-user detection and in future sensor
networks.